Homogenization Applied to Integrate Across Spatial and Temporal Scales in Forest/Insect Ecology

Powell
0077663
In one ecological problem of current interest all the
elements exist for application and testing of homogenization to
resolve the scale issue and simulate climate and human impacts on
outbreak insect species. The investigator and his colleagues have
developed a deterministic spatial model of Mountain Pine Beetle
(MPB, Dendroctonus ponderosae) dispersal and mass-attack of pine
hosts. The model is validated and descriptive on spatial scales
of hectares and time scales of days. In this project they use
techniques of homogenization on the MPB/host system to construct
a forest scale (> 100 hectare/years) model reflecting the
large-scale emergent consequences of current small-scale spatial
and temporal models of insect development, dispersal, and
response to climate. Direct computation on such large scales
would be prohibitive; similar difficulties face most ecological
simulations involving spatio-temporal heterogeneity at realistic
scales and life-system/dispersal interactions. The investigators
develop homogenization procedures that make this type of
ecological simulation generally tractable, and implement and test
these procedures in the MPB/host system. The homogenization
procedure generates an integro-difference equation (IDE),
operating with year-long clock `ticks' on landscape scales. In a
validation phase, the IDE model is used to classify landscapes.
Statistically analyzing misclassifications in comparison to
aerial imagery makes the simulation methodology self-correcting.
Finally, scenario studies are used to examine consequences of
hypothetical climate and management trajectories on host/insect
dynamics. This illustrates the power of homogenization
approaches in an ecological context, and provides needed examples
to make these techniques accessible to biological and
environmental researchers.
The method of homogenization is a mathematical technique
that allows deduction of large-scale properties from
deterministic small-scale models. To the best of our knowledge
the method of homogenization has never been applied to ecological
problems, where issues of scale are the focus of much debate. One
possible angle of attack is joint use of models and simulation,
followed by validation with spatially explicit data. Direct
computational approaches to ecological problems with full
description of spatial heterogeneity and climatic variation are
extremely difficult due to interaction of scales in time and
space. The difficulty is exacerbated on the one hand by the
paucity of validated, deterministic spatial models at any
ecological scale, and by the difficulty of extended spatial
observations on the other. In this project the investigators and
his colleagues apply the technique of homogenization to the
Mountain Pine Beetle/Lodgepole Pine ecosystem to resolve the
scale issue and simulate climate and human impacts on population
outbreaks of insect species.